Research Experiences for Undergraduates in Chemistry at the University of Florida

With this award, the Chemistry Division supports a Research Experiences for Undergraduates (REU) site directed by Drs. Randolph S. Duran and Michael Scott in the Department of Chemistry at the University of Florida. The ten participants, recruited nationally, will take part in projects involving a bio- and materials Chemistry research focus. The undergraduates will have the unique opportunity of interacting with ten French undergraduates who are present as part of a broader REU effort in the department. In addition, interactions with students from the Engineering Center for Particle Science and Technology (ERC) in Gainesville and the Center for Research and Education in Optics and Lasers (CREOL) in Orlando will be arranged. Student research findings are summarized in a journal-style report and the participants are encouraged to present their work verbally during the course of the program and, later, at the Florida Section meeting of the American Chemical Society.